The Use of Satellite Rainfall Estimates with Real-Time Flow Prediction Models for Large Catchments

The main research objective is to integrate meteorological procedures for obtaining estimates of mean areal rainfall from satellite Visible and InfraRed data with hydrological procedures and models for real-time flow prediction. In particular our objective is to characterize flow-prediction errors when using satellite rainfall estimates in the real-time prediction of streamflows from large catchments. Uncertainty due to rainfall estimation errors is explicitly taken into account and is propagated through the meteorological and hydrological models and procedures to become uncertainty in the real-time flow predictions. This a joint project in which the satellite data analysis will be performed at the University of Wisconsin-Milwaukee and the hydrological part will be performed at the University of Iowa. The results of this research will benefit experts, administrators and other users because the developed methods for integrating rainfall satellite data and hydrologic data will be used in predicting flows in real-time and thus, the quality of real-time flood prediction will be enhanced.